Purchase of a 300 MHz Multinuclear NMR Spectrometer with a Widebore 7.05 T Magnet and Solid State NMR Capabilities

Modern solid-state Nuclear Magnetic Resonance (NMR) spectroscopy offers the chemist one of the most powerful tools available for the study of the physical and chemical properties of materials. Fundamental knowledge of structure and dynamics of materials as diverse as biopolymers, resins, coals, and liquid crystals is accessible by solid-state NMR techniques. Solid-state NMR studies often complement those carried out using solution NMR and X-ray analysis. Access to solid-state NMR is rapidly becoming essential to chemists carrying out frontier research. This award from the Chemistry Shared Instrumentation Program and the Instrumentation for Materials Research Program will help the Department of Chemistry at the University of California in Santa Barbara, to acquire a high-field NMR spectrometer suitable for carrying out solid-state NMR studies. The areas of chemical research that will be enhanced by the acquisition include the following: Structural Characterization of Non-Oxidic Glasses by Modern Solid State NMR Techniques. Charge Carrier Inclusion in Zeolites Structural Characterization of Electrically Conductive Polymers in the Doped and Undoped State. Bio-Inorganic Chemistry of Vanadium. Photophysical Properties of Copper(I) Halide Clusters, Intercalated in Zeolite Hosts. Studies of Protein Structure by Fluorine NMR Spectroscopy Structure and Stereochemistry of Polyphosphazenes Dynamics in Lithium Chalcogenide Glasses NMR Studies of DNA-Protein Interactions Structural Studies of Metal-Carbon Bonded Species